RUI: Phylogenetic Dynamics of Selfing in Leavenworthia (Brassicaceae)

Leavenworthia, a small genus of mustards, includes a number of species that exhibit varying levels of specialization for self-fertilization. This presents an opportunity to understand the origin of selfing and subsequent modification of floral and genetic structure. To accomplish, however, it is essential that rigorous hypotheses of infra-generic phylogeny be developed. This research proposes to use variation in restriction sites in chloroplast and nuclear DNA within an parsimony/out-group analysis of phylogeny. The results will then be used to explore adaptive radiation of selfing and its adaptive significance. Correlations of floral characters will be sought to understand how selfing originates and expands within a single phylogenetic lineage. Electrophoresis of enzymes will be used to determine effectiveness of those traits in selfing.